Using Tardigrades to Understand Adaptations to Extreme Stresses

This project investigates how some exceptional animals can protect their biological systems from damage. Tardigrades can withstand severe dehydration, radiation, temperature extremes, and other stresses that would destroy most living organisms. Understanding the mechanisms underlying this resilience could reveal new approaches for preserving fragile biological materials, including therapeutics and other biomedical products that currently require specialized storage and have limited shelf lives. By advancing fundamental knowledge of biological stress tolerance, the project will advance understanding in this field and has potential long-term benefits for biotechnology, health, and U.S. economic prosperity. The project also supports workforce development through the training of students and researchers, and expands science education through a statewide outreach program that provides simple microscopes and instructional resources to elementary school teachers. These activities can increase access to hands-on scientific learning and strengthen STEM education in public schools.

The project seeks to identify molecular and cellular mechanisms that enable tardigrades to survive extreme environmental stresses. Previous studies have revealed some protective molecules, but many remain undiscovered, and the mechanisms that function within living animals are not yet well understood. The research will use newly developed experimental approaches in tardigrades to discover additional molecular protectants and to determine how protective systems operate in complex, in vivo contexts. The work focuses on tardigrade responses to desiccation and related stresses that can damage biomolecules. The project will combine molecular, genetic, and physiological analyses to characterize factors that preserve cellular integrity and promote recovery following extreme stresses. The results are expected to advance understanding of extremotolerance in animals and provide new insights relevant to biotechnology applications involving the stabilization and preservation of biological materials.